Examining the Impact of a Learning Community Model and Critical Pedagogy on Minority Student Retention in STEM

Benedict College will examine the impact of a Connected Learning Community Model on undergraduate student retention, academic success, and self-efficacy. The model, based on Bandura's Social Cognitive Theory, features student research experiences coupled with peer-to-peer and faculty mentoring and provides an engaging and supportive interactive learning environment to influence student outcomes. The model incorporates several factors: the influence of peers with similar sociocultural backgrounds, the influence of an academic mentor in fostering effective study skills, the influence of acquiring a responsible work ethic, and the influence of a better understanding of the benefits of STEM education. The project is expected to positively impact the pathway of underrepresented minorities in the STEM workforce by producing an evidence-based intervention that could be adapted for similar institutions, including community colleges.

The researchers will implement a mixed-methods design to investigate whether a connected learning community impacts the academic performance, retention, and self-efficacy of underrepresented minority STEM students. Multiple regression models will be used to explain the variation of academic success, retention, and self-efficacy with covariates such as age, socioeconomic status, gender, family education history, and marital status using the quantitative data. Qualitative data will be collected and analyzed for causative factors to support the quantitative effects observed during the study. Pre- and post-project interviews will be used to assess students' satisfaction with their academic experience, perceived benefit of membership in the learning community, interest in STEM careers, and commitment to persist in STEM. The study can potentially produce a novel paradigm for undergraduate STEM education targeting underrepresented students.

This project is supported by the Historically Black Colleges and Universities Undergraduate Program (HBCU-UP) Broadening Participation Research in Education track. This program track supports ideas to create and study new models and innovations in STEM teaching and learning, investigate the underlying issues affecting the differential participation and success rates of students from underrepresented groups, and produce knowledge to inform STEM education practices and interventions.